Computational Study of Oxygen Interaction with Diamond Surfaces

The objective of the proposed research is to theoretically investigate the interaction of oxygen with diamond surfaces in order to (1) identify the principal elementary chemical reactions of O atoms, OH radicals and O2 molecules with diamond surface sites and establish their kinetic and thermodynamic parameters, and (2) use the results to minimize the oxygen poisoning effect in CVD diamond. The PI will make use of his recently developed technique of simulating gas-surface interactions and surface processes using molecular dynamics (MD) modeling of the atoms, molecules and extended structures involved. The method uses a semi-empirical quantum-mechanical potential (SEQMP) to describe the region of the surface where reactions occur and an empirical potential (EP) to describe the rest of the surface.